Numerical Modeling of Neutron Star Binaries, Supernovae and Cosmology

Further study of neutron star binaries will be made using the recently developed three spatial dimensional general relativistic computer model. In particular the fate of the neutron stars, whether they form black holes or not (an equation of state issue), how the neutron stars turn their increased binding energy into thermal energy, the role of stellar spin, neutrino emission, the accompanying magnetic field, will be investigated. The implications for the gravity wave signal of the above processes which occur inside the neutron stars will be estimated.